Fundamental Studies in Adiabatic Shear Localization

9411383 Batra This is a project to compute the characteristics of shear banding. It has a companion experimental projects that will examine the effects of microscopic mechanisms, geometric defects and material properties on shear localization. The concept is to do calculations on the same problem as the experiments represent. ***